Software Engineering Curriculum Workshop

This project supports the development of a four-day workshop for twenty faculty that will give the participants the background to design and deliver a software engineering curriculum. This curriculum may be the basis of a B.S. degree in software engineering or of a software engineering concentration in a computing degree. The workshop helps faculty develop a support infrastructure for the curriculum, set up an evaluation and assessment model for the curriculum, and provides instructional resources for developing and teaching the modules of the curriculum.